An Interactive Computer Laboratory for Archaeology Students

This project requests equipment to provide computer-based laboratory experiences for undergraduate archaeology students. Archaeology, by its very nature, is an experiential, hands on field. Yet ethical and legal concerns make it difficult to teach archaeology using actual archaeological materials. Such concerns are particularly important at Northern Arizona University, which has large numbers of Native American students, the group most directly affected by archaeological research in this country. The PI is in the process of developing interactive computer programs in Hypercard on the Macintosh to teach archaeology using visual images. The students analyze archaeological materials (for example, pots, animal bones) on the screen, and interpret their results. In doing so, students learn how archaeological data are collected, analyzed, and applied within a problem-solving context.